Conference: Translating Photonic Quantum Technology By Leveraging Silicon Foundries and Manufacturing

To bolster America's leadership in quantum technology and its applications, this workshop convenes a meeting of leading scholars, researchers, and practitioners in academia, industry, government labs, foundries, and federal agencies to support the growth of a national quantum photonics translation and commercialization ecosystem. Quantum Integrated Photonics technology offers a compelling route toward scalable quantum computing, networking, and sensing for diverse applications in energy, finance, healthcare, transportation, and others, by leveraging (1) photons as robust carriers of quantum information and (2) silicon and related foundries as a mature, high-volume manufacturing platform. Despite rapid progress in laboratory demonstrations, translation of photonic quantum systems into deployable technologies has been hindered by the lack of scalable, silicon-compatible sources of quantum light and the absence of standardized pathways for integrating quantum devices into commercial semiconductor foundries. This project supports a two-day national workshop that addresses challenges and opportunities in translating and commercializing robust scalable quantum integrated photonics systems, as well as develop a strategic roadmap for their manufacturing, packaging, and testing using semiconductor foundries and infrastructure. Coordination across various sectors will help accelerate and maintain US leadership in quantum and related technologies, expand economic prosperity, and advance national security.